Joint U.S./European Bridge Engineering Research Workshop

9600571 Klaiber This project is a research coordination and planning workshop to determine areas for cooperation between Canada, the European nations and the United States, on topics of interest in the total field of highway bridge engineering. A report will be published for general distribution to the research and design community. ***